Engineering Research Equipment: Scanning Probe Microscope

CTS-931087074 Clemson University Douglas E. Hirt ABSTRACT Funds are provided with this research equipment grant for a scanning probe microscope system. An interfacial polymerization technique is to be explored as a basis for imaging surface heterogeneities for improved production of low-cost, pitch-based carbon fibers. High thermal conductivity carbon fibers and fiber-reinforced polymer matrices will also be studied by scanning probe techniques. Materials development continues to be vital strategic research area with broad implications for industry. With thermal conductivities three times that of copper, commercial carbon fibers can be used to pipe heat away in electronic devices or integrated circuits. Fiber-reinforced polymer composites is a promising material as components for orthopedic joint replacement and fracture fixation. AUTOEXECBAT X J BURKA PRE dP #zs SAVERS j " ICONS j " LM Y CTS-931087074 Clemson University Douglas E. Hirt ABSTRACT Funds are provided with this research equipment grant for a O Q ! ! F ( Times New Roman Symbol & Arial Apple LaserWriter II NT LPT3: pscript Apple LaserWriter II NT U D o d , X Z e " h C C 1 Nichelle Coward Nichelle Coward